SGER: Statistical Analysis of Grass Comparative Maps

This Small Grant for Exploratory Research (SGER) project focuses on computational and statistical methods to evaluate comparative genetic map data. Two new statistical approaches, the colinearity test and the genome matrix, will be explored and developed further. Both methods will be applied to an existing biological problem that needs reassessment - the comparative map of the grasses. Both methods will be implemented in computer programs that will be released to the scientific community. Eventually, these methods will prove useful not only for interpreting comparative genetic map data but also for interpreting physical map and comparative sequence data.